Workshop on the Role of Controlled Source Seismology in the EarthScope Project; San Antonio, Texas; September 2007

The objective of this workshop is to follow-up on the results of a gathering of the controlled source seismology community during the EarthScope 2007 national meeting. The discussions during this gathering clearly showed that this community needs to jointly address challenges that it faces and there was broad agreement that a community workshop was needed.